Stochastic Processes on Rough Spaces and Geometric Properties of Random Sets

How does information spread within a system over time? How is this related to the intrinsic structure of
the system? Mathematical models are developed to understand and make predictions about the
behavior of highly complex processes and structures. Richer and more realistic models can be obtained
by increasing their 'roughness'; here we may think of the intricate branching of large networks like the
Internet. In addition, incorporating randomness can help to better describe the interactions between
the elements that compose the model, for instance between different web servers. The area of
mathematics concerned with the analysis of random processes and structures is called probability
theory. This project aims to apply probability theory to better understand the interconnections between
the random processes, the geometry, and the analysis of rough spaces and random geometric models.

The research supported by this award aims to investigate stochastic processes in rough spaces and
functionals of random sets. The PI will analyze the behavior of diffusion processes intrinsic to fractal-like
spaces, where classical concepts such as derivatives or canonical measures are less straightforward or
not even available. Special attention will be paid to the study of functional inequalities and gradient
estimates to gain further insight into the connections between the process and the geometry of the
underlying space. Besides, the PI will analyze properties of large spatial data sets modeled by point
processes with long range dependencies. Here, the focus lies on geometric and potential-theoretic
aspects of random covering sets and the asymptotic behavior of statistics employed in the detection of
rare events. The PI expects that the methods and techniques developed will lead to progress on current
questions in mathematical physics, material and data sciences.